1996 Civil Infrastructure and Sustainable Development for the 21st Century: An International Civil Engineering Research Symposium & Exposition

9320896 Bernstein This symposium will bring together the world's recognized leaders in civil engineering (and related disciplines) from industry, the public sector and academe. The symposium themes, include: Civil Infrastructure and Sustainable Development for the 21st Century; Bringing research into practice in an open global market, and; Information technology and automation.